Large-Scale Spatial and Temporal Variation in Assemblages of Birds

The North American Breeding Bird Survey (BBS) coordinated by the U.S. and Canadian Fish and Wildlife Services provides potentially valuable data for assessing the effects of natural variation and human activities on the distribution and abundance of wild organisms. The BBS consists of standardized censuses of breeding birds conducted annually for the last 20 years at approximately 1,800 local sites in the U.S. and Canada. The main reason why the BBS has not been more heavily used by scientists is that the sheer magnitude of the data set requires sophisticated computer techniques for analysis. This proposed research will begin an intensive computer analysis of the BBS to determine: 1) the size and pattern of fluctuations in bird populations from year-to-year within a local census site and among the numerous sites across the North American continent; 2) the extent to which these fluctuations are correlated with and caused by changes in climate, land use, and other factors; and 3) the degree to which different bird species show similar or different patterns of variation in abundance and distribution. Special attention will be devoted to identifying factors that are associated with declines in abundances and contractions in geographic ranges. The proposed research will provide increased understanding of the relationships between animal populations and their environment on time scales of decades and spatial scales of an entire continent. The research will also contribute importantly to assessing the effects of human-caused changes in climate and land use on the abundance and diversity of wild species.